Foundations of the Quantum Theory of Nonlinear Optics

9403601 Hillery The project consists of two parts. The first is the fundamental treatment of dispersion, operator ordering in the Hamiltonian of the non-linear optical field. the second is the continued study of correlations, interferometric measurements and tests of Bell's inequalities. ***